Broad-Band, Wide Dynamic Range Fiber-Optic Accelerometer System for Ground Motion Surveys

Improved, reliable accelerometers suitable for wide deployment in seismic arrays are needed for the measurement of ground displacements due to earthquakes, earthquake precursors, and man-made seismic events. Improvements are sought in broad-band sensor response down to fractional Hertz, with wide dynamic range, high reliability, and reduced maintenance costs. Wide dynamic range devices capable of measuring both small seismic events (precursors) and also severe earthquakes are needed. In response to this need, Optical Technologies (OPTECH), a Division of Dynamic Systems, Inc., proposes to research and develop a laboratory prototype, Triaxial Fiber-Optic Seismometer (TFOS). Using phase measuring and reset-counting demodulation, the resulting device will be capable of detecting seismic signals in a range of from subnano-g up to approximately 0.23grms. Thus, the measurement span of the Phase II triaxial seismometer prototype is expected to exceed 170 dB.